SHF: Small: BugX: In-house Debugging of Field Failures to Improve Software Quality

A recent survey conducted among developers of the Apache, Eclipse, and
Mozilla projects showed that the ability to recreate field
failures--failures of the software that occur after deployment, on
user machines--is considered of fundamental importance when
investigating bug reports. Unfortunately, the information typically
contained in a bug report, such as memory dumps or call stacks, is
usually insufficient for recreating the problem. Even more advanced
approaches for gathering field data and help in-house debugging tend
to provide too little information to developers and to be therefore
ineffective.

The overall goal of this project is to improve the state of the art by
allowing, supporting, and partially automating, actual in-house
debugging of field failures. Specifically, this research will develop
novel techniques and tools that let developers reproduce, analyze, and
understand, in-house, failures observed in the field. Given a field
failure, the developed techniques will (1) collect a suitable set of
data about the failure on the user machine, (2) generate one or more
inputs that can be executed against the failing application and result
in a failure analogous to the one observed, and (3) provide hints on
the root causes of the failure and possible fixes for these causes. To
achieve this goal, the research will combine static and dynamic
program analysis techniques and leverage and extend techniques for
testing deployed software, input generation and anonymization, and
software debugging. If successful, this research will provide
unprecedented advantages to developers by allowing them to debug field
failures in the same way in which they debug in-house ones, which will
improve software quality and benefit all segments of society that
depend on software. Furthermore, the project will develop and make
available to the broader scientific community educational materials
that incorporate research findings, tools that implement the
techniques developed within the project, and samples of the software
benchmarks used in empirical evaluations. The availability of
curriculum materials, tools, infrastructure, and benchmarks will
advance knowledge, enable additional research in the area, and
ultimately further benefit society.